Chemical Sciences Research Experience Program for Undergraduates

The project involves 15 undergraduate students doing research in chemistry, biology and engineering in ongoing research projects done at the university. The students are from both the university and associated regional colleges and universities. The research areas in engineering deal with chemical engineering, civil engineering, environmental engineering and biotechnology.